CAREER: New Super-Ligands for Lead: Tight and Selective Pb(II)-Binding Agents

This CAREER award in the Inorganic, Bioinorganic, and Organometallic Chemistry Program supports reseach and education on aqueous lead chemistry by Dr. Hilary A. Godwin of the Chemistry Department, Northwestern University. The goals of the research are to design and synthesize ligands that will bind Pb(II) tightly and selectively, correlate the spectroscopic properties of Pb(II) with the coordination environment, and develop ratioable fluorescent probes for monitoring lead speciation in situ. A combinatorial approach will be used to select ligands, and one- and two-dimensional Pb NMR spectroscopy will be used to probe the coordination environment.

Fluorescent probes will be developed which will be helpful in determining lead speciation in biology and in the environment. Students involved in the project will be exposed to an interdisciplinary approach. In addition, emphasis will be placed on environmental chemistry in freshman courses and on outreach programs to increase awareness of lead poisoning in the Chicago area.